Summer Institute on Research Methods in Cultural Anthropology

This research project will support a second three-year program of summer workshops in ethnographic methods in cultural anthropology. The first three workshops were held in Gainesville, Florida. Twelve PhD-level cultural anthropologists will attend a three-week workshop to be held at Northern Arizona University the first two years (and at the University of Florida in the third year), to learn the state-of-the-art in research methods. The emphasis is on micro-computer applications and advanced methods in cognitive anthropology such as consensus analysis. The need for this activity was shown by the submission of 108 applications for the 12 available positions for the summer of 1989. This workshop is important because social science is developing new methods of research and faculty members must maintain their expertise if they are to conduct leading-edge scientific research.